Acquisition of a Time-of-Flight Mass Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Iowa State Institute will acquire a time-of-flightmass spectrometer. This equipment will enhance research in a number of areas including a) the development of new palladium-mediated synthetic organic methods; b) new pathways for the total synthesis of natural products; c) the design, synthesis and analysis of new high performance polymers; d) mechanisms of catalytic reactions promoted by organometallic complexes; and e) photocatalytic degradation of organic wastes in aqueous media.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including materials and environmental sciences.